GLOBE in the Urban Environment

This project will integrate GLOBE activities sponsored by the Los Angeles Unified School District (LAUSD) with environmental research projects at UCLA's Institute of the Environment. A research program in air quality and human exposure that utilizes GLOBE data collected at LAUSD schools will be created. In addition, an innovative teacher training program will be implemented that reflects GLOBE research themes and includes new professional development extension courses offered by UCLA. Advanced placement environmental science courses that reflect GLOBE protocols will be established in a number of low socio-economic status schools in the Los Angeles area.